Building Community Resources for the NSF Graduate Teaching Fellows in K-12 Education Program

This proposal seeks funding for a three-year effort that will continue to provide important resources for projects funded through the NSF Graduate Teaching Fellows in K-12 Education (GK-12) Program. AAAS with the GK-12 program staff will: (1) plan and implement the an annual 2.5-day meeting, 2007-2009, for members of the GK-12 project teams (principal and co-principal investigators, graduate students, K-12 educators, project managers, and evaluators); and (2) maintain and regularly update a comprehensive Web site that offers a wide range of information such as up-to-date descriptions of projects, statistical data, pertinent literature, proven practices, evaluation instruments, and appropriate connections that it can be a timely resource for current, past, and future GK-12 participants as well as the broader science, technology, engineering, and mathematics (STEM) community.